Integrated Process Control Laboratory.

This project allows students in a two-year technology program to study process control in a state-of-the-art training laboratory. This laboratory, equipped with programmable logic controllers, permits students to apply their understanding of classicsal control theory within a totally integrated technological setting. These students are being prepared to function in industrial environments that are increasingly moving toward automated manufacturing processes. This award is being matched by an equal sum from the grantee.